Workshop on the Application of CFD in the Automotive Industry to be held at Michigan State University, June 14-16, 2000

Abstract
CTS-0001794
Tom Shih, Michigan State University

The focus of the proposed workshop to be held at Michigan State University is to identify barriers that prevent from CFD from being more useful in the design and analysis of automotive components and systems. Three panels will be invited to speak at the workshop, one academic and two industrial. The academic panel will consists of leading CFD researchers. The industrial panels will consists of CFD experts and managers from the Big Three (DaimlerChrysler, Ford and General Motors) and representatives from the major CFD commercial code companies (Adapco, AEA, ANSYS, AVL and FLUENT).

The workshop will be held on June 14-16, 2000 at the University Faculty Club in East Lansing, Michigan.